Generation of Peptides with Defined Secondary Structure

The objective of this project is to generate many different peptide sequences in defined secondary structures through the use of specifically positioned disulfide bonds, and to use such peptides to test the relationship of the activity of the peptides with their secondary structure. Dr. Wemmer will determine structures of small, naturally occurring, cystine containing peptides using two dimensional NMR spectroscopy. Based on the peptides studies, he will then select specific cysteine "basic" positions, and investigate the degree to which changes in the surrounding peptide sequence can be made, while still retaining the secondary stucture of interest. Proteins are typically very complex biological structures which have evolved to meet specific structural requirements for activity, regulation and stability. Natural proteins result from simultaneous selective pressure along all of these lines. In these proteins only a small part of the complete sequence may really be required for one aspect of the multiple functions. Therefore it is possible to duplicate some of the activity of the protein using only a fraction of its amino acids.***//